Development of a Cost Effective Implantable Glucose Sensor for Diabetic Patients

9315118 Ebtisam S. Wilkins The purpose of this project is to develop an implantable glucose sensor for continuous in vivo monitoring of glucose concentration in blood or in other body fluids, and without the need for withdrawal of body fluids. This should lead both to a marked improvement in the clinical management and scientific understanding of diabetes. The broad objective of this project is to test in animals an implantable glucose sensor capable of continuously monitoring blood glucose levels. Specific aims of the research include the determination of sensor lifetime in vivo, the sensor response time, the characterization of the sensor behavior, and the biocompatibility of the sensor and attendant telemetry system in the body fluid environment. Finally, the sensor would be miniaturized and modified as indicated for a final design to be used in human trials. ***